Pathways to Teaching Science for Understanding in Diverse Schools: Merging Inquiry-Based Science and Sociocultural Constructivism with Multicultural Education

In the last twenty years, we have seen increasing evidence that
teacher education programs have little or no impact on preservice teachers'
original conceptions of teaching and learning. Therefore, it is imperative
that preservice teachers are offered better opportunities to connect what
they learn in the university context to the school context. This issue is
even more urgent in science education when one considers the calls for
finding effective ways to prepare secondary science teachers to meet the
needs of an increasingly diverse pupil population.
Hence, the study proposed here seeks to explore the following
research questions:

1. What are the difficulties cooperating and preservice teachers encounter
while trying to implement a sociotransformative constructivist orientation
in diverse middle school classrooms (i.e., an orientation that intersects
inquiry-based science teaching with sociocultural constructivism and
multicultural education)?
2. In what ways does a sociotransformative constructivist orientation to
teaching enhance cooperating and preservice teachers' abilities to teach
science for diversity and for understanding?
3. In what ways does a sociotransformative constructivist orientation to
teaching enhance pupils' attitudes toward and academic performance in
science?
To explore these research questions, a three-year longitudinal
study will be conducted, and will include three parts. The first part
consists of a two-week summer institute for twenty middle school teachers.
The hands-on and minds-on activities offered at the institute will be used
to illustrate how a sociotransformative constructivist orientation can be
implemented in the classroom. The principal investigator and two master
teachers (from the local area) will offer instruction. The second part of
the project will consist of pairing preservice teachers with the teachers
who participated in the summer workshop. By this time, the preservice
teachers would have completed a required science methods class based on the
same theoretical frameworks that guided the summer institute. The third
part of the project will consist of a follow-up study of the preservice
teachers after they graduate and secure teaching jobs. The new graduates
will be followed up for the first two years of teaching. Two summer
conferences will be held with cooperating and novice teachers to strengthen
the on-going efforts for mentorship and professional development.
Data for all stages of the study will be analyzed using an
ethnographic approach. Thus, cooperating and preservice science teachers
and a focus group of their pupils will be visited regularly by the research
team, and on-going in-depth interviews and classroom observations will be
conducted. Some lessons will be videotaped and a variety of teacher- and
student-produced work will be gathered to add more context and
opportunities to contrast emerging themes and categories.
The results of this study should enrich our understanding of how to
effectively prepare science teachers to teach for understanding in
increasingly diverse schools. Similarly, this study will add insights on
how to enhance the academic performance and attitude toward science of
diverse middle school pupils.